An Infrastructure Facility for Parallel Processing

This Institutional Infrastructure award is for the support of research projects in experimental and implementation aspects of distributed and parallel computing. The funds will support the acquisition of a parallel computer and for the support staff to maintain it. The research supported includes systems and programming issues for parallel machines, parallel algorithms, and dynamic visualization. The High Performance Computing, Communications and Information Technology initiative recognizes as important to the nations future the development of new architecture computers to solve problems which now cannot be solved on computers. This infrastructure award gives the University of California, Santa Barbara the equipment necessary to participate in this research initiative.